Integrating Numerical Software Libraries with an InteractiveScientific Computing Evironment

In terms of hardware capabilities, distributed/parallel computing is a technical reality today. With modern workstations and networking, users can compute on workstations on remote compute servers, or even on ensembles of computers, running compute-intensive kernels in parallel by exploiting idle CPU cycles on networks. However, substantial knowledge about networking and parallel/distributed computing is required to achieve this. The goal of this SBIR Phase II project is to build a state-of-the-art software package that will bring this immense potential power to the user's own workstation, except they will run many times faster. The package will be based on CLAM(R), a powerful, interactive software environment for computation and visualization, designed, developed and marketed by Scientific Computing Associates, Inc. The Phase I work proved the feasibility of seamlessly accessing local external libraries and demonstrated CLAMshell(TM), a Mac-like user- friendly front end for CLAM. The phase II work will complete the research on two approaches: (1) parallelizing the compute intensive kernals of CLAM's internal back end (2) enhancing CLAM's foreign procedure interface to permit access to procedures which run on other computers (including parallel supercomputers) or over a computer network in a distributed/parallel fashion.